Partial Differential Equations

DMS-9970857
ABSTRACT

Our mathematical research centers around the following
problems in partial differential equations of both
theoretical and practical interest.
The first part is concerned with the regularity of solutions
for the sum of squares operator, or sublaplacian.
We will investigate necessary and
sufficient conditions for the local and global analytic regularity of the
sublaplacian when the bracket condition is satisfied.
Moreover, in the absence of the bracket condition we will study
the weaker properties of global analytic and smooth regularity
of the sublaplacian on the torus.
Also we will consider regularity problems for CR structures,
and principal type operators.
The second part is concerned with the study
of the Cauchy problem for nonlinear partial differential equations
of shallow water type under low regularity initial data
using harmonic analysis techniques. In particular we
plan to investigate the local and global well-posedness of the
initial value problem for the completely integrable
Camassa-Holm equation.
And finally, in the third part we plan to show that the exponential map of
an appropriate metric on the group of volume--preserving diffeomorphisms of a
compact riemannian manifold is a nonlinear Fredholm map of
index zero. This would be significant because, as is well known,
geodesics of this metric correspond to solutions of the Euler
equations of hydrodynamics.

Partial differential equations is a many-faceted subject.
Our understanding of the fundamental processes of the natural world
is based to a large extent on partial differential equations.
For example, the equations considered in the first part of our
proposal arise in the diffusion of chemicals, in the spread of heat,
and in many other physical processes influenced by diffusion.
Moreover diffusion processes are closely connected to
random (Brownian) motions. The synthesis of the theory of these
diffusion partial differential equations and probability
provides the theoretical framework for studying problems
where diffusion and randomness are present. An example outside
mathematics and physics is the field of Finance, where powerful techniques from
stochastic analysis have been brought to bear on almost all aspects of
mathematical finance: pricing of financial derivative products such
as options and bonds, hedging, interest rates and so on.
The equations in the second and third parts arise from problems in
hydrodynamics. They are mathematical models describing
fluid flow. The study of these equations will contribute
in our understanding of wave formation, the structure of their
singularities, and
their long time behavior. It may also contribute in the very
big problem of understanding turbulence.
At the same time the theory for studying these partial differential
equations problems forms a vast subject that interacts with many other
branches
of mathematics, such as complex analysis, differential geometry, harmonic
analysis, probability, and mathematical physics.